REG: Structural Modal Analizer and Testing System

9500150 Sack The objective of the research that will be performed under this proposal is to experimentally demonstrate the effectiveness of a highway bridge vibration control system. A designated bridge will first be tested initially to establish a valid structural model (FEM). The identified model will then be employed to develop an optimized design for the retrofit of the bridge with the hydraulic semiactive control system. Once the new control system has been installed, then the performance of the bridge will then be monitored to determine the effectiveness of the design. If successful, the design should extend the useful service life of the bridge by several years at a small fraction of the cost that would have been realized to refurbish or replace the bridge. In order to accomplish the project, the proposal requests funds to purchase a structural modal testing system (SMTS). The SMTS will be used to acquire and analyze vibration data, and to identify the structural model of the bridge.